Presidential Young Investigator Award: Graph Theoretical Studies of System Level Fault Diagnosis and VLSI Circuit Layout

This research program focuses on system-level fault diagnosis and VLSI circuit layout. This study further extends the graph-theoretic approaches to develop unified algorithms for the diagnosability problem of various models. It also investigates an adaptive system diagnosis approach and develops self-testing techniques for large-scale systems. In the area of Very Large Scale Integrated (VLSI) circuit layout, a linear time algorithm is being developed for planarity testing of a partially oriented graph which models the circuit. The efficient implementation of the algorithm is due to the extended PQ-tree data structure. Based on this data structure, this research further develops algorithms for drawing the actual circuit in the plane and for the two- or multilayer circuit layout problems.